Optical Force Trap Micromanipulator

This is a SBIR Phase I project in the topic area of biological instrumentation. Aprend Technology will develop an optical force trap micromanipulator using a semiconductor laser. Such a device is potentially useful as an attachment to high powered microscopes used in cell biology research. If the product becomes readily available at a reasonable cost, it is likely to be widely used by the research community.